Dissertation Research: Assessing the Internet's Effect on the Underserved Community--A Case Study of Six East Central Florida Families

This dissertation research project studies the barriers to and ramifications of providing Internet access to traditionally underserved (minority, low income, limited English proficiency) populations. The examination will identify (1) strategies, activities, and materials that can be used to encourage entry into technology by these groups, (2) barriers to access, and (3) support services required for continued participation. Qualitative methods, specifically naturalistic inquiry, will be used to acquire the information and to evaluate particpants' interactions with the Internet over time. The study will provide data that can be used to help to narrow the gap between information `haves` (those capable of accessing and using information productively) and `have-nots.` Results can be used to inform designers and decision makers of the National Information Infrastructure about processes by which underserved individuals and groups come to understand, use, and participate in global networking.